International Conference on Hadronic Matter in Collision; Tucson, Arizona; October 6-12, 1988 (Physics)

This project supports a conference on experimental and theoretical aspects of collisions of strongly-interacting particles (hadronic matter). It covers both elementary particles and nuclei. This conference should enhance the rate of progress in strong interaction physics.